Laboratory Equipment to Initiate an Integrated Junior-year Course in Investigative Biology.

The project is providing Junior-level Biology majors with basic training in the design, execution and evaluation of scientific research in a two- semester course entitled Investigative Biology. The first semester includes discussions of general principles and the performance of sample experiments from a variety of biological areas using oscilloscopes and other equipment for relatively simple investigations. The second semester consists of the design and performance of a research project from the area of photoreceptor physiology, using some model experiments with the electronic probes, amplifiers, analysis/recording devices and computers to process the data. The students are studying the physiological effects of the timing, intensity and wavelength of light on several types of photoreceptors.